Summer Program in Nuclear Science and Technology

North Carolina State University @ Raleigh will initiate a four- week, residential Young Scholars project in Physics and Engineering which will offer science enrichment activities for 28 precollege students entering grade 12. This summer program is an evolution of a similar program that has been presented successfully at the University since 1982. Students participate in four weeks of lecture, laboratories and research at NCSU working under the close supervision of experienced nuclear engineering faculty. Participants acquire an understanding of nuclear engineering fundamentals and engage in a research experience that requires them to collect data, make measurements and interpret the results.